A Study of Minority Science and Engineering Doctorate Recipients Who Began Their College Careers as Non- Traditional Students

This proposed project addresses a very important educational issue and a major NSF concern (minorities in the science and mathematics pipeline). The topic of non-traditional paths to science and mathematics doctorates needs to be studied systematically, and the proposed project represents a good first step in that direction. The national data base analysis and interviews with minority doctorate recipients should be illuminating. Ideally, they will spawn hypotheses that will serve as the foundation for more non-doctoral minority personnel who work in science/mathematics areas in corporations or the military also have potential to yield some important findings.//